SBIR Phase II: Advanced Tonnage Analysis System for Forging Processes

NATIONAL SCIENCE FOUNDATION
Proposal Abstract

Proposal: 0620436 PI Name: Chang, Tzyy-Shuh
Proposal Title: SBIR Phase II: Advanced Tonnage Analysis System for Forging
Processes
Institution: OG Technologies, Inc
Abstract Date: 06/28/2006

The Small Business Innovation Research (SBIR) Phase II project will develop an advanced tonnage signal processing system for the forging industry. This system will utilize advanced signal processing methods and statistical control techniques to distinguish between normal (in-control) and abnormal (out-of-control) tonnage signals, detect faulty process conditions (cold die, die wear, mismatch, improper lubrication, etc), and to conduct real-time process monitoring in the forging process.

The use of the advanced tonnage signal analysis system will contribute to reduction in energy consumption and carbon emissions, and improved tool (die) life in the forging process. This system also has the potential to be used in other deformation processes including rolling, stamping, extrusion, and drawing.

RDG; 6/28/2006